Nuclear Physics Studies at Intermediate Energies

The proposed research program in experimental intermediate energy nuclear physics has two components: one, utilization of the IUCF Cooler Ring to make kinematically complete measurements of NN pion production near threshold; and two, measurement of eta meson photoproduction at the Bates electron linac. The first of these will provide stringent tests of the inelastic, or non- static, aspects of the NN interaction. The second will explore the electromagnetic structure of those nucleon resonances which decay primarily by eta emission, and the difficulties associated with planned coincidence experiments at the next generation facilities. Design and construction of new detectors are major elements of the IUCF experiment, to a lesser extent with the Bates work. Both are important and fundamental measurements.